Singular Solutions to Certain Equations in the Physical Sciences

0071858
Zheng

It is proposed to study some nonlinear partial differential equations from
fluid dynamics and liquid crystal physics. These equations are the laws of
motion of their respective physics. The turbulent nature and/or defects in
the materials make the solutions of the equations singular, unstable, and
hard to calculate. It is planned to use advanced analytical tools to study
the structures of the singular solutions. In the case of the liquid crystal
wave equation, for example, the plan is to study it as one of the simplest
examples of nonlinear generalizations of the basic linear wave equation. It
can be seen from its elegant form that there will be many applications of
the equation in the future. Singularities of its solutions have been shown to
exist recently by the principal investigator and his collaborators. It is these
singularities that block the establishment of a general theory of existence,
uniqueness, and stability of solutions. It is planned to do detailed estimates
and analysis on the singularities and improve current compactness
arguments to form an existence theory of solutions. The result of the
investigation will be a clear understanding of the worst possible solutions,
and thereby quantify our knowledge of the physics and offer guidance in
numerical computations of general solutions.

The research will involve the study of some applied mathematical
problems in the fields of fluid dynamics (which includes motion of the air
and water) and liquid crystal physics in material science. Scientists and
engineers have used mathematical equations, called partial differential
equations, to model the motions. The turbulent nature and/or defects in the
materials show up in the form of singularities and instabilities in the
solutions of the equations. It is these singularities and instabilities that
often spoil accurate numerical computations of the solutions. It is planned
to use the state of the art analytical tools to study the structures of the
singular solutions. In the case of a compressible gas such as air, for
example, the principal investigator plans to isolate typical singularities
(hurricanes, tornadoes, shocks, etc.) and investigate their individual
structures. The result of the investigation will be a clear understanding of
the worst possible solutions, and thereby quantify our knowledge of the
physics and offer guidance in high-performance numerical computations
of general solutions.